Shipboard Technician Support

94-00764 The University of Rhode Island (URI) requests renewed funding for Year 1 of a three-year continuing grant to support shipboard technician activities associated with the research vessel ENDEAVOR. The ship is a 177-foot vessel that is owned by the NSF and operated by URI. URI technicians will be responsible for operating and repairing instruments while at sea, maintaining instruments ashore and assisting with scientific operations as necessary before and after cruises.